Cary Conference 2007 to be held on May 1 - May 3, 2007 at IES: Advances in Urban Ecological Heterogeneity and Its Application to Resilient Urban Design

Intellectual Merit

Spatial heterogeneity is an important organizing concept in ecology. However,
studies of ecological heterogeneity have often focused on small scale, wild, or
uninhabited landscapes. As ecology turns increasing attention to urban areas,
additional aspects of heterogeneity must be better understood. New frameworks
for spatial heterogeneity are required to support new models of resilient urban
ecosystems as coupled ecological, social, and built systems.
Because much of the spatial heterogeneity in urban systems is anthropogenic,
the urban design and ecology must be better linked. We propose a Cary
Conference to explore common frameworks for ecology and urban design. This
would be the 12th biennial Cary Conference at the Institute of Ecosystem
Studies. These conferences are known as milestones in the development of
ecology due to their synthetic, interdisciplinary, and fundamental nature.
The 2007 Cary Conference will advance the fundamental ecological theory and
synthesis of data on urban spatial heterogeneity, as well as articulate the theory
and practice of urban design in an ecological context. For ecology, advances
would include 1) development of integrated frameworks for urban spatial
heterogeneity, 2) better integration with social processes and the hazards
associated with infrastructural and designed components of urban systems, 3)
exploration of new models of urban spatial heterogeneity; and 4) refinement of
ecological models of urban systems. For the fields of urban design, advances
will include 1) summarizing contemporary ecological insights to support new
strategies for resilient urban design, and 2) understanding ecological functions of
urban designs in their larger contexts. Utilization of insights from environmental
hazard analysis and feedback from ecological urban design to social science will
also be explored.

Broader Impacts

Through the building of professional networks, the publication of a crossdisciplinary
book, and the construction of a website on ecological urban design,
the Conference will promote the development of more ecologically motivated
designs in cities, suburbs, and the urban fringe. It is crucial to make the best
contemporary ecology available to urban design. The growth of global and US
urban population and land conversion confirms that urbanization is a pressing
issue for the 21st century. This Conference will help incorporate contemporary
ecological knowledge into design practice by 1) communicating ecological
concepts and principles to design theorists, educators, and practitioners, and 2)
demonstrating how basic ecological science can be applied in an urban setting.
In addition, encouraging an experimental aspect to design and development can
encourage more ecological research in urban systems.